Mediation of Calcium Homeostasis During Embryogenesis

Dr. Packard plans to assess the relationship between transport of calcium across the chrioallantoic membrane of chicken and other bird eggs and maintenance of calcium homeostasis during embryogenesis. The research will examine the effect of perturbation of calcium transport on calcium metabolism of intact chicken embryos during normal incubation. Experiments address the role of carbonic anhydrase in calcium metabolism, the effect of inhibition of carbonic anhydrase activity on action of the hormonal form of vitamin D, the ability of this hormone to increase transport of calcium to embryos, and the importance of vitamin K to maintenance of calcium homeostasis. The plan is to identify those components of the transport system that are most critical to normal function and those aspects of calcium metabolism that are most sensitive to perturbation, and will provide new information on the mechanisms involved in regulation of calcium metabolism. Results will enable integration of the data on the biochemistry of calcium metabolism during embryogenesis. These studies will provide comparative information on calcium metabolism in chicken embryos and embryos of another species that produces precocial young (Canada geese) as well as a species that produces altricial young (yellowheaded blackbirds).